EAGER: Leveraging Human-centered Technologies to Enabling Micro-retrofit Energy-saving Opportunities in Homes

For many U.S. households, home energy bills are one of the largest and least flexible expenses and take up a large share of their income. While programs and technologies to reduce home energy use exist, they often require large upfront costs. As a result, the households that would benefit most from lower bills are frequently the least able to afford the improvements that would deliver those savings. This project will develop a self-directed home energy platform that helps residents find and carry out small, low-cost improvements in their own homes. Rather than pushing families toward major renovations, the platform will guide them through affordable steps, such as sealing an air leak, adjusting a thermostat schedule, or adding inexpensive insulation. These modest changes together can produce lasting reductions in monthly bills. The project brings together residents, community partners, industry collaborators, and local schools in the Pittsburgh region. Homeowners will help shape the platform by sharing what motivates them and what obstacles they face. Middle and high school students will take part in hands-on activities to learn ways to save energy through low-cost improvements.

The system developed by the project will work by identifying micro-retrofits: small, low-cost changes to a home that are easy to implement and matched to a household's specific circumstances. The work involves three connected activities. First, the project will investigate whether inexpensive off-the-shelf sensors, placed by residents themselves, can identify where a specific home is losing energy without the need for professional equipment. Second, the team will apply principles from behavioral science so that recommendations are understandable and easy to act on. Third, community engagement will help the team understand what residents currently know about home energy use, what motivates or prevents them from acting, and what real costs and constraints shape their decisions. Together, these activities will inform the design of a home energy audit platform that residents can use on their own to identify and carry out effective, low-cost improvements. The research will demonstrate the effectiveness of low-cost interventions, provide inexpensive sensing methods that yield useful personalized insights, and apply behavioral design to help residents follow through with the recommendations. All datasets and research artifacts will be made openly available so that other researchers and communities can build on the work.